A Structural Geology Computer Laboratory

The project will provide students instruction in the use of graphics capable microcomputers in a specific geologic course and how to conduct a structural, stratigraphic, and economic analysis of a specific geologic region. Eight graphics capable microcomputer systems, two dot matrix printers, one laser printer, and one plotter will be purchased and housed in a geology computer laboratory. The projects will be conducted in the laboratory section of the junior-senior level structural geology course. Emphasis will be in three areas: problem identification; data analyses; and, geologic interpretation. First, the students will generate data files from such field data as air photos, geologic maps, oil well logs and "on-site" field data. Second, the files will be analyzed with software programs such as structural contouring, isopach mapping, 2- and 3-D models, log analyses, reservoir analyses, stereonets, rose diagrams, and various histograms. Last, the data will be interpreted, nd reports will be required. Each student will be expected to present their results in a formal seminar before their peers, and each will be encouraged to submit the results for publication. The University will match the award with an equal amount.